California Sea Grant College: National Sea Grant Fellowships

This action is to provide an interagency transfer of funds from NSF (OCE) to NOAA (National Sea Grant Office) to support a National Sea Grant Fellow for one year.